Readsorption and Diffusion Effects on Steady-State Isotopic Transient Kinetic Analyses

ABSTRACT James Goodwin CTS-9312519 This is study of the effects of readsorption and diffusion in solid-state isotopic transient kinetic analysis (SSITKA). Several modelling techniques, including nondimensionalizing, compartmentalization, and parameter lumping, are used in modelling the processes. Laplace transforms produce model transients for comparison to experiments. The important parameters of readsorption and diffusion effecting SSITKA are determined. Readsorption is modeled without diffusion or reaction, and these parameters are then added sequentially. Intraparticle diffusion is treated similarly, and the two approaches combined into a total SSITKA model. Solid-state isotopic transient kinetic analysis is a powerful method for the study of catalytic reactions and provides kinetic and mechanistic information that often is otherwise unobtainable. This effort will add a major element of finesse to the technique and should make SSITKA data more useful for process and reactor design.